Ir Gene Control

The Ia glycoproteins encoded by the I region of the murine major histocompatibility complex (MHC) play a critical role in the generation of the T cell repertoire, and in T cell recognition of antigen. The goal of the proposed research is to analyze at the cellular and molecular level, the selective pressure Ia molecules impose on the generation of the T cell repertoire. The model to be studied is the Ia mutant B6.C-H- 2bm12 (bm12) mouse and its wildtype counterpart, the C57Bl/6 (B6) mouse, since the bm12 mutation in Ia has created functionally distinct Ia restriction sites. To understand how Ia molecules influence the T cell repertoire, Dr. Hochman proposes to: 1. define precisely how the bm 12 mutation has altered the restriction and specificity of antigen specific T cell recognition, and 2. to begin to analyze how the bm12 mutation alters the selection and rearrangement of V genes from shared (bm12-B6) T cell receptor gene pools. B6 and bm12 T cell hybridomas specific for peptide fragments of well defined protein antigens will be prepared and assessed for their ability to recognize antigen fragments in the context of Ia epitopes unique for or shared by Ia of b and Ia of bm12. This will allow for the definition of the multiplicity of restricting epitopes a unique Ia molecule can express. She will then begin to undertake molecular analyses of the alpha and beta genes encoding the antigen receptor of these cells by constructing cDNA libraries, isolating alpha and beta gene clones, and sequencing variable regions of these genes to understand how Ia molecules control the construction of diverse repertoires when choosing from shared T cell receptor gene pools. An animal's ability to respond to a particular antigen is controlled by immune response (Ia) genes which are associated with the major histocompatibility complex. The mechanism by which these genes regulate responsiveness is controversial. Although many laboratories are undertaking structural analyses of immune response gene function, this mutant mouse model provides a unique tool with which to study the selective pressure that Ia genes impose on the selection and rearrangement of T cell antigen receptor genes and, thus, the range of antigens to which an animal can respond.